CAREER: Molecular Simulation of Polymer Glasses

9624808 Lacks This CAREER grant supports the work of a young assistant professor at Tulane University, chemical engineering department. The PI has been trained in molecular simulation methods as applied to a study of polymers. The work proposed here focuses on the vibrational properties of polymeric glasses and their influence, on the one hand on the dynamical relaxation in glasses and on the other, on the thermodynamic properties. The essential educational component consists of a revision of the chemical engineering curriculum to include more moleculap theory and computer simulation. %%% This is a CAREER grant to a young assistant professor at Tulane University chemical engineering department. The grant contains a research component consisting of a computer simulation study of the vibrational properties of polymeric glasses (plastics). In the educational component, the PI is proposing revision of the chemical engineering curriculum to include more molecular theory and also computer simulation. ***